The United States Nuclear Regulatory Commission (U.S. NRC) Support of the National Center for Atmospheric Research Activities

This a Cooperative Support Agreement to the NSF/UCAR Cooperative Agreement to support the National Center for Atmospheric Research activities funded by the U.S. Nuclear Regulatory Commission.